Symposium on Quantum Fluids and Solids; Amherst, MA; June 9-14, 1998

9810007 Hallock This award provides partial support for a Symposium on Quantum Fluids and Solids that will be held in Amherst, MA on June 9-14, 1998 on the campus of the University of Massachusetts. The Symposium will emphasize new developments in low temperature physics in the area of quantum fluids and solids, including BoseEinstein condensation (BEC), and will have sessions devoted to instrumentation and techniques. The conference will bring together practitioners from the atomic physics community, who have been working at ultralow temperatures in order achieve BEC, and traditional low temperature physicists, who use liquid or solid helium or adiabatic demagnetization methods to achieve ultralow temperatures. The NSF support will be used to provide travel funds for graduate students or younger faculty to attend the Symposium. %%% This awards provides partial support for a Symposium on Quantum Fluids and Solids that will be held in Amherst, MA on June 9-14, 1998 on the campus of the University of Massachusetts. The Symposium will emphasize new developments in low temperature physics in the area of quantum fluids and solids, including BoseEinstein condensation (BEC), and will have sessions devoted to instrumentation and techniques. The conference will bring together practitioners from the atomic physics community, who have been working at ultralow temperatures in order achieve BEC, and traditional low temperature physicists, who use liquid or solid helium or adiabatic demagnetization methods to achieve ultralow temperatures. The NSF support will be used to provide travel funds for graduate students or younger faculty to attend the Symposium. ***